Quadratic Forms on Schemes and Geometry of Varieties

The (de Rham) cohomology, based on differential forms on a smooth
manifold, provides an analytic representation of singular cohomology.
For natural spaces which are not smooth, like complex algebraic
varieties, singular cohomology is available, but some of its useful
properties no longer hold and there is no good analytic representation.
However, the de Rham cohomology of forms with moderate growth near the
singular set provides a good alternative, because it satisfies duality
and (Hodge) filtration properties like those in the smooth case.
The investigator and his collaborators study this cohomology in two
cases, where the variety has isolated, point singularities and where
it is the minimal compactification of a locally symmetric space. In
the latter case certain natural functions are studied, with the goal
of proving that they are modular forms. A second line of investigation
concerns quadratic forms defined over the ring of regular functions
on an algebraic variety. The investigator relates these quadratic
forms to quadratic forms defined on the rational function fields
of all subvarieties, in much the same way that holomorphic functions
are related to meromorphic functions and their residues. The
consequent connection to certain multiplicative structures on ideals
in the ring of regular functions is explored.
The first part of the project pursues a program to study
wrinkles (singularities) in a space. If this space were a surface,
wrinkles would typically occur near places where the degree of
turning (called curvature) is very high. One part of the project
is then to quantify this degree of turning, with the eventual goal
of understanding what sorts of wrinkles can occur singly or in groups.
Some of the problems in this project come up in physics, especially
string theory, to which the the investigator and his collaborators
intend to apply the methods they develop. The second part of the
project concerns questions about abstract number systems, in particular
whether a given (abstract) number is a perfect square, or the sum of
two or more perfect squares. Such questions have been studied for
centuries in the mathematical subfield called number theory. More
recently, the intractability of the problem of finding certain
perfect squares, even with a computer, has been shown by other
investigators to be the basis of certain protocols which guarantee
the secure and fair electronic exchange of information.